Support for The Activities of The Solid State Sciences Committee (SSSC)

Abstract The Solid State Sciences Committee is conducting analyses and preparing reports on current topics of interest to the materials research community. These topics include superconductors, electronic ceramics and free electron lasers.